High Performance Liquid Chromatography in the Chemistry Curriculum

High-performance liquid chromatography (HPLC) is one of the most effective tools available in the modern chemistry laboratory for separating complex mixtures. The objective of this project is to educate chemistry majors, and selected non-science-majors and honors students, in the theory and use of this powerful separation technique. Introductory courses are stressing qualitative separations of simple mixtures using HPLC, while the more advanced courses are investigating chromatographic theory, instrument optimization, and quantitative complex separations. Incorporation of HPLC into the chemistry program is providing students with the ability to recognize how and when to fully exploit chromatographic separations in solving chemical problems.